GOALI: Semi-Batch High-Temperature Polymerization: Mathematical Modeling and Optimization

Polymers with low average molecular weight and a low polydispersity index have many applications in the paint and coating industry. Production of such polymers requires tight control of the molecular-weight distribution of the polymers. Control is achieved by adjusting the temperature, diluting the reaction mixture, and adding chain transfer agents, mercaptans, and cobalt glyxins. Liquid-phase, high-temperature, free-radical polymerization is used to produce low average-molecular-weight polymers. Preliminary results also show that high-temperature, free-radical polymerization of butyl acrylate (BA) can lead to the production of low poly-dispersity index, BA polymers. Thus, high-temperature polymerization offers better controllability to produce the desired polymer product.

This NSF GOALI project is a joint effort between Drexel University and DuPont aimed at improving the quality of acrylate and styrenic, homo-polymers and copolymers produced via high-temperature, solution polymerization. This Faculty-in-Industry project is motivated by the need to take a fundamental approach to improve the product quality. The PI Soroush will spend one year in DuPont's Marshall Laboratory to pursue the following research and education activities:
*Study the kinetics of liquid-phase, high-temperature (140-200oC), free-radical, BA and butyl methacrylate (BMA), homopolymerization reactions to develop mathematical models for high-temperature, BA and BMA, semi-batch, polymerization reactors.
*Calculation of optimal temperature and feed flow-rate profiles as well as loading conditions for high-temperature, semi-batch, BA and BMA, polymerization reactors.
*Formulation of a set of industrial, process modeling, open-ended problems to be assigned as projects to undergraduate students taking the process modeling courses at Drexel University.